Mathematical Sciences: Composition of Sums of Squares; Quadratic Forms and Galois Groups

This project is concerned with two problems in quadratic form theory. The first concerns the existence of composition laws for sums of squares. The second problem considers the connections between the behavior of quadratic forms over a field of characteristic different than two and the types of Galois groups which can arise over that field. This project is related to the classical study of quadratic forms. One of the early achievements in this field is the discovery by Gauss that every positive whole number is the sum of four squares. This area is important not only in pure number theory but in geometry and the mathematics of relativity.